Semiconductor Optoelectronic Devices

Research in semiconductor-based optoelectronics will be conducted, with emphasis on applications to optical communication. Semiconducted laser noise will be analyzed to determine the basic physical limits to the spectral purity of semiconductor lasers. This work will extend the previous results on a self-consistent semiclassical theory of noise behavior to a full quantumtreatment, particularly quantum-well lasers. Detuned loading in coupledsemiconductor lasers will be pursued both theoretically and experimentally. High output power laser arrays which could have considerable impact on the development of optoelectronic processing and devices will be addressed. Several new ideas including fabrication techniques could overcome some of the current lack of success in this area.